Workshop Proposal: Quantum Control Summer School, August 8-14, 2005; California Institute of Technology; Pasadena, CA

We are submitting this proposal to request NSF support for a Quantum Control Summer
School, to be held 8-14 August 2005 at the California Institute of Technology. This
school is being organized in response to burgeoning interest among physicists, engineers
and applied mathematicians in exploring the principles and applications of control in
systems whose behavior is manifestly quantum mechanical. The lectures will be addressed
mainly to graduate students and senior researchers who are just getting started in the
field, but will include some advanced presentations to provide some perspective on
research frontiers. We have already secured seed funding for the summer school from
Caltech's initiative in Information Science and Technology, but we are seeking additional
support from government agencies including the NSF and AFOSR.
Intellectual merit: Control theory is a central discipline in modern engineering, but so
far there has been only preliminary research on extending its constitutive methodologies
to incorporate quantum dynamics and measurement. Applications areas for quantum control
theory range from protein structure determination to precision measurement and metrology,
and deep connections have been identified with the field of quantum computation. We
anticipate that this summer school can play a critical role in stimulating the development
of quantum control, as it has the enthusiastic support of important constituencies in
control theory, mathematical physics, atomic physics, quantum optics and condensed matter
physics.
Broader impact: This summer school will provide a unique educational experience for both
students and senior researchers who attend. Its topic is inherently interdisciplinary and
has sufficiently strong intellectual appeal to draw the attention of leading researchers
in both engineering and pure physics. It seems reasonable to hope that events of this
kind will spur a synthesis of quantum physics, dynamical systems theory and probability
theory in the same way that early workshops on quantum computation facilitated the
development of a common language for physicists and computer scientists.